ROW: Microscopic Structure and Functional Mechanical Properties of the Feeding Tentacles of Terebellid PolychaeteWorms

This proposal represents and ROW research planning grant. The research proposed will continue comparative studies on the mechanical response of invertebrate worm tentacles, when exposed to forces encountered during the feeding process, and how the responses relate to the structure of the tentacle and to the microscopic organization of the tissue of which it is composed. The relationship between the mechanical properties and the tissue organization of invertebrate feeding tentacle are of particular interest because tentacles capture food in diverse ways ranging from removal of suspended matter from moving water to the removal of particles from a substratum. This project addresses important aspects of cell and tissue structure and function and should lend considerable insight into what mechanisms can permit some cells and tissues to undergo large deformations and to recover their prestrained shapes.